Architecture and Properties of Polymer Systems

This research consists of work on: (1) Interpenetrating polymer networks-their synthesis, characterization, microstructure, electrical conductivity of iodine-doped samples and the computer simulation of their formation and properties; (2) Template effects on copolymerization; (3) The study of polymer dynamical relaxation times by biased sampling Monte Carlo simulations; and (4) The effects of large static or dynamically induced anisotropy on polymer systems. In each of these topics they will stress the influence of polymer architecture and isomerism (including topological isomerism). This research is a combined theoretical and experimental project designed to relate physical properties with the molecular architecture of polymers.